Meteorological Research in Oxidants and Aerosols over the North Atlantic: AEROCE Phase III

9528907 Merrill The goal of this research is an understanding of the role of meteorological influences on the oxidizing capacity of the atmosphere. In collaboration with a team of atmospheric chemists and modelers we will study the chemical behavior of the North Atlantic Ocean atmosphere using surface-based measurements, ozonedonse, aircraft and remote sensing techniques. Our work entails analysis to quantify the continuous and dynamic influence of transport and removal processes on ozone and a number of chemical tracers. Pulses of high surface ozone on Bermuda are often associated with the passage of cold fronts. During the spring of 1995 we will observe the meteorological and chemical properties across fronts from aircraft and ozonesondes and assess the relative contributions of different sources. In conjunction with the field intensives proposed for AEROCE phase III, we will provide extensive operational meteorological support. In addition, we will be responsible for integration of the resulting meteorological and chemical observations and will collaborate with other AEROCE PI's in their interpretation. A series of high- altitude aircraft flights are proposed for spring of 1996 and we will provide meteorological information to differentiate the relative importance of natural and anthropogenic sources. We will use potential vorticity analyses to assess the importance of transport from the stratosphere and upper troposphere into the middle and lower troposphere. We will prepare isentropic trajectory analysis and combine these with the chemical observations using cluster analysis to filter the data and identify data collected under similar large scale motion. These will allow us to prepare chemical climatologies not only for 03, but for CO and other tracers. With several years of ozone data, we will determine the extent to which large-scale atmospheric motion controls the interannual variability over the NAO. Finally, we will develop detailed case s tudies for selected periods of meteorological interest, as well as during the groundbased and airborne intensives. For these times we will make use of remotely- sensed rainfall and other meteorological data. Results from these investigations will help to resolve questions regarding the meteorological processes controlling ozone cycling over the NAO.